Fifth Annual Workshop on Aerospace Computational Control; Santa Barbara,CA

This project deals with the organization of the Fifth Annual Workshop on Aerospace Computational Control. The major objectives of this workshop are to provide NSF and NASA an assessment of current computational control research and development; to identify future needs in important research areas such as computer-aided control design and multibody simulation tools which can be built with the combined efforts of government, industrial and university personnel; and to strengthen the link between tool developers and end-users. Another important goal of the workshop is to strengthen cooperation between the industry and university researchers thereby aiding in the transfer of technology from the research level to the end-users. The issues discussed at the workshop include multibody dynamics, computational techniques, model reduction, real-time simulation, symbolic manipulation and concurrent processing.*** //